Improvement of the Laser Physics Laboratory at West Virginia Wesleyan College

This proposal seeks funds to purchase new and modern equipment for their ten year old, largely home built equipment, laboratory. Such equipment will better prepare their majors in the use of modern experimental technique for their senior research and for graduate school and industry.